X-Ray Studies of the Statistical Physics of Surface Morphology

9423641 Mochrie Surface morphology is key to a number of technologically important processes, including for example, corrosion, catalysis, and epitaxial growth. In addition, there remain basic scientific questions, most especially concerning the nature of instantaneous correlations between different points in the interface, and the correlation between the interfacial position at different times. These fundamental issues will be addressed in the proposed research. Specifically, studies of the equilibrium properties of crystal surfaces will be made to investigate equilibrium surface morphology. In addition, the kinetics of changes in surface morphology following rapid temperature changes, and during growth, will be investigated. This research will lead to an improved understanding of what determines surface morphology. Such an understanding may eventually allow for the introduction of simple processing strategies for tailoring surface morphology to suit technological needs. The experimental technique employed in these studies is high-resolution synchrotron x-ray scattering, in conjunction with a proven, state-of-the-art ultra-high vacuum apparatus. %%% The form and structure of solid surfaces are the keys to a number of technologically important processes, including for example, corrsion, catalysis, and the growth of one crystalline solid on another. In addition, there are basic scientific questions, especially concerning the nature of instantaneous correlations between different points in an interface (as when a crystal surface grows) and the correlation between the interfacial position at different times. To address these issues, studies of the equilibrium properties of crystal surfaces will be made to investigate the equilibrium form and structure of the surface. The rate at which changes in surface form and structure occur following rapid temperature changes, and during gro wth, will also be investigated. This research will lead to an improved understanding of what determines the form and structure of a solid surface, and may eventually allow for the introducton of simple processing strategies for tailoring surface form and structure to suit technological needs. The experimental technique employed in these studies is high- resolution x-ray scattering combined with state-of-the-art ultra-high vacuum apparatus. ***